RUI: Speciation in the Sea: Developmental Evolution and Host Shifts in the Sacoglossa

To effectively conserve biodiversity, we must identify existing species and recognize the forces that generate species richness. Rivers and mountains can separate terrestrial populations for millions of years, allowing them to split into distinct species; however, we have little idea how species form in the ocean where there are few such boundaries to movement. Speciation could follow if some individuals inherited a preference for a new habitat or food source, or if populations became genetically fragmented after a species evolved non-migrating larvae. To test these ideas, we will construct a family tree of herbivorous sea slugs from across the globe, inferring relatedness among species by phylogenetic analysis of their DNA. For each species we will determine the host seaweed used as both food and habitat, and the type of larvae produced (dispersing versus non-migratory). By establishing algal hosts, larval types, and relationships among species, we can determine which traits have contributed to speciation in this group.
If new species form when slugs switch onto different host algae, this will overturn long-held assumptions about speciation in the sea. This study will also test whether non-migratory larvae evolve due to pressure on mothers to make bigger offspring, and whether such larvae in turn promote the formation of new species. The results will advance our understanding of why certain regions or groups of animals have more species than others, and lead to the description of many new sea slug species. Both aspects are critical to preserving the ocean's biological richness.